Cohesionless Soil and Small Discontinuous Reinforcing Elements in Composite Engineering Material

This SBIR Phase I research deals with the development of a type of reinforced soil. Granular soil will be mixed with small reinforcing elements (synthetic polypropylene or somewhat similar material). The reinforcing increases the resistance of the mix to tensile forces, greatly improving the engineering properties of the reinforced soil.